Excellence in Science, Technology, Engineering and Mathematics Scholarship Program

The project serves approximately 20 talented students per year who major in biology, chemistry, computer science, geology and physics. The Intellectual Merit of the project arises by providing students with activities that address their need for academic counseling and career guidance, as well as opportunities for scholastic and professional enrichment. These include faculty and peer mentoring, research and internship opportunities, service learning and capstone experiences, resume writing and interviewing skills, participation in professional organizations and professional meetings, field trips and team building experiences. The project has Broader Impact through aggressive recruiting and outreach efforts that will be concentrated at high schools with large populations of students from groups typically underrepresented in STEM fields.